Wild Research: A Whole-Zoo Exhibit and Inquiry Program

Miami University - Ohio/Project Dragonfly is developing "Wild Research," a multi-faceted collaborative project with the Cincinnati Zoo & Botanical Garden and with a consortium of ten zoos and aquariums around the country, the American Zoo and Aquarium Association, the Society for Conservation Biology, and Conservation International. Project deliverables include a centrally-located 4,500 square-foot Wild Research Discovery Forest exhibit and six Wild Research Stations around the Cincinnati Zoo, a Wild Research Consortium and Wild Research Leadership Workshops for zoo professionals, conservation scientists and educators, a Wild Research Web site with visitor password access to exhibit data they collected, and 90-second radio pieces for the 90-Second Naturalist program. Institute for Learning Innovation is conducting the formative and summative evaluations. The Ohio Assessment and Evaluation Center is conducting a separate evaluation focused on this extensive institutional collaboration process. The primary public impact is to explore new ways zoos and aquariums can incorporate inquiry-based activities on site and to help visitors understand the work of conservation scientists. The project also aims to improve the practice of zoo and aquarium professionals nationwide in inquiry-based experiences and communicating about conservation science.